Hard Problems in Hard Analysis

We investigate four major unsolved problems in or bordering on harmonic
analysis. These are the Kakeya problem, the Lipschitz differentiation
problem, the restriction problem, and global solvability for the
Navier Stokes equation. For the Kakeya problem, we continue our
work with Tao on improving exponents in the sums-differences approach.
For the problem of differentiation by Lipschitz vector fields, we try
to apply our work on maximal functions in arbitrary directions to
understand what are the limitations on a counterexample and hopefully
that none can exist. For the restriction problem, we try to apply
the new results on Kakeya and to better understand Bourgain's
machine for converting Kakeya results to ones about restriction.
For Navier Stokes, we first discretize everything in the
form of a kind of generalized wavelet coefficients. In work with
Pavlovic, this has already produced a generalization of
the Caffarelli-Kohn-Nirenberg theorem to the case of hyperdissipation.
We hope from this point of view to discover a sort of local dispersion
property for the cascading effect from the nonlinear term. Then we
hope to tie in the Clay problem with a dyadic model in which this
dispersion is a given. As might be imagined, we are unlikely to solve
all these problems.

Analysis concerns the proof of estimates on interesting systems by
examing the contributions of all their parts. One such system is
the Navier Stokes equation which governs the behaviour of incompressible
viscous fluids. An important open problem is whether this equation
starting with smooth initial data can develop singularities without
a forcing term. This would akin to a cyclone beginning spontaneously
in one's bathtub. It seems rather unlikely but the tools of analysis
are not yet strong enough to rule it out. Our approach is to
discretize the problem, that is to try to approximate the problem
by one about a finite number of objects and investigate possible
interactions of those objects by means of combinatorics. Most
physically arising mathematics can be looked at this way because matter
is not continuous but rather composed of particles. We will work
on the above problem and some other important problems which may be
approached with the same point of view.